Mesoscale Processes and Primary Productivity at the Polar Front

9530507 ABBOTT This research project is part of the US Joint Global Ocean Flux Study (JGOFS) Southern Ocean Program aimed at (1) a better understanding of the fluxes of carbon, both organic and inorganic, in the Southern Ocean, (2) identifying the physical, ecological and biogeochemical factors and processes which regulate the magnitude and variability of these fluxes, and (3) placing these fluxes into the context of the contemporary global carbon cycle. The Antarctic Circumpolar Current (ACC) provides a pathway between the major basins of the Pacific, Atlantic, and Indian Oceans. Therefore, it plays a critical role in the global redistribution of salt, heat, and other ocean properties between these basins. Although improved observations and more powerful numerical models have identified many critical processes, it is still not possible to balance all of the terms. The scarcity of direct observations has greatly hampered our understanding of the physical environment, and the situation with regard to ocean biogeochemistry is even worse. The challenge to understanding Southern Ocean dynamics (both physics and biogeochemistry) is exacerbated by the strong dynamical link between mesoscale processes and large-scale processes. The dynamical scales approach the scales typical of energetic coastal systems. Yet the size of the Southern Ocean and its impacts on global biogeochemistry and climate make this an important region. This research starts with the hypothesis that the ecosystem of the Antarctic Polar Frontal Zone (APFZ) behaves much like a coastal upwelling system which is characterized by episodic diatom blooms. These blooms result in high f-ratios, high preservation rates of biogenic silica and relatively little vertical flux of particulate biogenic material. These processes are consistent with observations of bottom sediments. The lack of meridional barriers leads to a "recirculation" of diatoms associated with frontal meanders. Phytoplankton wou ld alternately upwell and then downwell in these meanders, creating a helical circulation path. Such bloom events may be unimportant in the total productivity of the system but play a disproportionate role in carbon fluxes. In this project a high-resolution sampling array of moorings with bio-optical sensors and current meters will be deployed. The moorings will rely on low-cost components so that the sampling scales will match with the dynamical scales of the critical processes at the Polar Front. Lagrangian drifters (some equipped with bio-optical sensors) will be deployed during high-resolution surveys in order to characterize the temporal and spatial scales of variability when coupled with the Eulerian observations from the moorings. These data will be analyzed in conjunction with high-resolution SeaSoar surveys and high temporal resolution sediment traps proposed by other investigators to study the effects of mesoscale processes on productivity and horizontal and vertical fluxes of biological properties.